Photoemission Studies of Ionic Crystal Surfaces (Materials Research)

The silver halides will be studied by the techniques of angle integrated and angle resolved photoemission using continuously variable photon energy in the range 10 to 500 electron volts. Three types of experiments will be carried out: (1) The first is angle integrated valence band photoemission with photon energy variable through the Cooper minimum for the silver 4d levels. Thin polycrystalline samples will be employed, and an attempt will be made to separate d from p-derived valence bands by the known variation of photoemission cross section. The angular anisotropy factor will also be measured on these randomly oriented polycrystalline samples. (2) Angle resolved photoemission will be carried out on single sheet crystals in order to map the valence bands and observe calculated spin orbit splittings. (3) High resolution core level photoemission will be carried out in order to observe surface/volume core level shifts on well characterized silver bromide surfaces. High resolution thin film adsorption coefficients will be measured in the range 50 to 1500 electron volts on selected materials. These studies take on a new significance because of the current interest in the development of tunable solid state lasers.